Research in General Relativity and Quantum Gravity

The bulk of this research program will concern the "causal set
hypothesis", which states that the deep structure of spacetime is that
of an extended "family tree", known technically as a "partial order".
Prof. Sorkin will develop this approach further by advancing the
underlying theory, while at the same time applying it to questions like
that of the cosmological constant, which recently has been shown to
contribute the greater part of the effective energy density of the
universe. The remainder of the research will continue the study of
closely related questions about the fine structure of black hole
horizons and questions concerning what happens when the topology of
spacetime changes or deviates from flatness on small scales.
All these questions are important as part of the larger problem
of quantum gravity, which is how physicists refer to the task of
unifying the two main pillars of physical theory in its current
state of development: Quantum Theory and General Relativity. A
theory of quantum gravity is generally expected to tell us about
the deep structure of spacetime on the smallest length scales
and, at the same time, to help answer questions about how the
cosmos came to be as it is on the largest length scales.